Acquisition of Chemical Instrumentation for the Development of the Biochemistry/Molecular Biology Curriculum

The Department of Natural Science and Mathematics is purchasing a UV/VIS spectrophotometer, a fluorescence spectrophotometer, and a refrigerated centrifuge including two rotors. This equipment markedly improves the department's capacity to teach the methodological, quantitative, and data analysis capabilities necessary to understand and practice modern chemistry and molecular biology. In addition to providing the opportunity to pursue more sophisticated and relevant laboratory exercises in the affected courses, it also offers the opportunity to establish significant faculty and student research programs and projects. Serving a predominantly female student population, Trinity College offers baccalaureate majors in several natural science disciplines, and provides approximately 10% of the elementary and secondary school teachers entering the profession in the State of Vermont.